Applications of Heat Kernel Techniques to Zeta Functions of Quotients of Symmetric Spaces and of Graphs

The grant proposal describes several directions of
research to be undertaken by Jay Jorgenson and his co-authors
which, somewhat generally, build on his prior investigation of
number theoretic applications of heat kernel and heat kernel
analysis. Previous work by Jorgenson with J\"urg Kramer focus on
analytic aspects of Arakelov theory. Continuing this work,
Jorgenson and Kramer recently established a relation between
certain L-functions attached to non-holomorphic Maass forms and
L-functions attached to holomorphic forms of weight two. Part of
the proposed research describes work to be carried out by
Jorgenson and Kramer which studies the application of their
L-function relation to questions involving bounds of Fourier
coefficients of Maass forms. Additionally, the Jorgenson and
Kramer collaboration has resulted in projects involving the
inter-relations between hyperbolic, parabolic, and elliptic
Eisenstein series. The research proposal describes a number of
problems which remain in this direction. In collaboration with
Gautam Chinta and Anders Karlsson, Jorgenson has initiated a
program of study of heat kernels and analytic number theory
associated to totally disconnected spaces, including discrete tori
and Cayley graphs associated to finite groups. The proposal
outlines further questions to be investigated by Jorgenson in his
joint research efforts with Chinta and Karlsson.

The heat kernel, and heat kernel analysis, is present
in many areas of mathematics and related fields. For example, one
component of the joint research undertaken by Chinta, Jorgenson
and Karlsson is to study determinants of certain matrices
associated to graphs associated to finite groups. Going back as
far as Kirckhoff in 1847, connections have been known which
establish relations between these determinants and other
disciplines, such as electrical engineering and chemistry. More
recently, one can say that a considerable amount of financial
mathematics and financial engineering is built on heat kernel
analysis. In addition to specific research problems posed by
Jorgenson which relate to finance, his teaching duties include
curricular development activities involving financial engineering
and bio-statistics courses, all of which benefit from Jorgenson's
research program. Finally, the proposal describes a wide range of
problems which are assessable to students of many levels, ranging
from advanced undergraduate students to recent Ph.D.'s.